Task Order No. 61 Workshop Support, "Optical Communications Systems and Networks, Washington, DC area (March 23-24, 1994) (Contract CPO-9216105)

9411995 King This Task Order is for Workshop Support for the Solid State and Microstructures Program, Workshop on Optical Communications Systems and Networks, Washington, DC area (March 23-24, 1994). ***